REU Site in Microbiology at The University of Iowa

This award provides funds to establish an REU Site in the Department of Microbiology of the University of Iowa. Emphasis will be placed on recruitment and selection of women, minorities and students from non-Ph.D. - granting institutions where opportunities for research are limited or nonexistent. The nine students selected will be integrated into participating faculty research teams and will be expected to perform in a manner similar to beginning graduate students. The hands-on experience in the laboratory will be supplemented by informal discussions and weekly seminars. A picnic, a conference for student presentation of experimental results and a banquet at the end of the session will also provide opportunity for social and scientific interaction. It is hoped that students will be stimulated to pursue careers in science through this REU program.